U.S.-Sweden Cooperative Research: Examining Errors of Biological Information Transmission Concerning the Genetic Code

This award would support research collaboration between Professor Jack M. Parker, Southern Illinois University, Carbondale, and Professor Charles G. Kurland, University of Uppsala, Sweden. They will study errors of biological information transmission concerning the genetic code. Mistakes seem to occur on the ribosome which refer to the amount of energy invested in protein synthesis. The proposed research will attempt to discover the types of errors, their costs or benefits, and the strategies cells have for coping with the errors. Much of the data on missense errors comes from early in vitro work, but it is not clear ________ how these results correlate with the in vivo situation. _______ Professors Parker and Kurland will study the misreading of phenyla-lanine codons in a native message, both in vivo and in vitro. _______ ________ Professor Parker has systematically explored in vivo missense errors in _______ selected proteins and has expertise in gene manipulation. Professor Kurland and his group have developed a refined in vitro system to study ________ errors in protein synthesis, but he has confined his studies to synthetic messages. Combining the approaches of the two researchers is important because it allows a comparison of in vivo and in vitro _______ ________ misreading of a single message. The proposed research should lead to refinements in the interpretations of the data derived from the two experimental methods.